Research Dissemination through Organizing Workshops

The PI and Co-PIs propose to organize a joint conference of two Workshops: the
Workshop on Algorithms and Models for the Web-Graph (WAW 2007) and the Workshop on Internet & Network Economics (WINE 2007) at San Diego December 11-14, 2007.
The main theme of WINE focuses on the algorithmic game theory including various aspects of computational complexity and applications such as auctions, pricing, collaboration, competition, security and other Internet related economical issues in general. In the past three years, there has been a great deal of development in understanding the computational complexity of Nash equilibrium and large scale economical games. WINE workshops have played a vital role in this and have been an impetus to the developments of algorithmic game theory and numerous applications.

WAW focuses on mathematical modeling and analysis of the dynamics of the webgraph and related large complex social networks as well as algorithmic applications in declustering, information retrieval and data mining. The series of WAW workshops have contributed to the rapid developments on the graph-theoretical and algorithmic aspects of the new science of networks.